SGER: Reasoning about Utilities and Incentives in Multi-Agent

Motivated by the challenges of designing multi-user software systems and by the prospect of ubiquitous electronic commerce, the goal of this research project is to develop the theoretical foundations for reasoning about utilities in a multi-agent setting, and use these foundations to construct methods with which to reason effectively about other agents' preferences and motivations. The approach draws on developments in AI as well as in economics. Specifically, the project defines a notion of utility distribution that plays a role analogous to that of a probability distribution, and the notion of a utility network that allows one to reason about utilities the way Bayesian networks allow one to reason about probabilities. Beyond this, the project is investigating hybrid networks, which allow simultaneous reasoning about probabilities and utilities. The results of this project will provide a firm theoretical framework in which to reason about beliefs and preferences in multi-agent systems, with potential applications in software design and electronic commerce.